Automated X-ray Diffractometer for Undergraduate Instructionand Research

9350939 Freed The Geology Department is using a Philips PW 1840 automated X- ray diffractometer system which to enhance both undergraduate courses and undergraduate research. The goal is to integrate use of the diffractometer into three components of Trinity's science curriculum: (1) the beginning Physical Geology course; (2) the geology major, specifically student research projects and three required sequential courses for the major (Mineralogy & Crystallography, Igneous & Metamorphic Petrology, and Stratigraphy & Sedimentation); and (3) laboratory exercises in engineering and physics classes (Engineering Materials and Condensed Matter Physics). Beginning geology students use modern analytical X-ray equipment as an integral part of examining minerals and rocks. Advanced students are using the instrument to study mineral identification techniques, understand crystallographic relationships, investigate compositional and structural variations in minerals, and work with multiple-phase systems, such as sediments or fine-grained igneous or metamorphic rocks. After completing the required course sequence, geology majors have the experience necessary to use the diffractometer for addressing mineralogical problems in a research context. The diffractometer significantly expands the types of research projects that students can undertake. ***